Research in High Energy Physics

9514767 Pevsner In this proposal Professors Pevsner and Chien request support for participation of their group at Johns Hopkins University in experiments at the L3 detector at the LEP collider at CERN, in addition to work leading to participation in the CMS detector at Atlas and the AMS space shuttle experiment. ***